Instrument-free yes/no quantitative analysis of molecular biomarkers

Contemplating on the recent pandemics, the general public came to realize and appreciate the vital role of do-it-yourself diagnostic devices for disease control and management. Such devices report whether a unique pathogen-associate molecule (also known as a molecular biomarker) is found in a human. To extend the benefit of accessible molecular diagnostics to a wider range of diseases and situations, it is critical to develop devices that not only report whether a specific molecular biomarker is present but also answer the question of how much of that biomarker is present (so called quantitative analysis). The goal of this project is to develop a platform that enables an equipment-free and easy-to-interpret quantitative analysis of molecular biomarkers in do-it-yourself and point-of-care environments. To ensure an easy interpretation, the platform will produce a yes/no answer that involves observing bubbles as a readout. Observing bubbles does not require scientific training, an equipped lab, or color vision proficiency and, therefore, can be easily recognized by everyone ages 2 and up. In addition to public health benefits, the proposed development will spark and sustain a STEM interest in middle- and high school student through their direct hands-on engagement in the project- related experimental work.

The goal of this project is to develop a platform for instrument-free easy-to-interpret quantitative analysis of molecular biomarkers. The proposed platform will comprise two developments: a yes/no output for quantitative measurement and a novel equipment-free signal readout. The yes/no quantitative measurement will be enabled through stoichiometry. The heart of the model is negative cooperativity-based target – probe binding. The binding modality yields a well-defined structure exactly at the stoichiometric equivalence point. Detection of the structure is a yes/no event for a quantitative result. The new equipment-free readout will be based on bubbling produced in a gas-generating reaction. As an easy to spot and interpret phenomena, bubbling perfectly matches the yes/no paradigm. The gas-generating readout will be triggered via an activatable in the equivalence point catalytic system. The project will produce a general methodology that is adaptable to a range of molecular targets including potential new agents (once their target binding is characterized to some extent).